Teacher Enhancement Through Experiential Courses

Teacher Enhancement Through Experiential Courses is a two-year series as pilot workshops for K-12 teachers in Colorado. The one credit in-service programs will combine problem-solving approaches to real-life situations outside of the traditional classroom. They will incorporate curriculum development, in- school trials, and the sharing of results in follow-up sessions. They will lead to the development of "master teachers" and a networking among teachers and various resource people and facilities in the region.